Constitutive Models for Shape Memory Alloys

The object of this research is to develop a shape memory alloy (SMA) constitutive model that incorporates martensitic transformation characteristics, temperature, multiaxial stress, and austenite texture as inputs. Crystallographic characteristics of the martensite transformation are built into the model. Thermodynamic characteristics of the martensite transformation are incorporated into the SMA model through temperature dependent factors in the constitutive equations, combined with strain energy effects from prior studies of thermoelastic martensite. The goal is to have the model predict effects of temperature, stress state, and texture on SMA response. %%% The above SMA model could have a wide variety of uses, including determining the thermo-mechanical response of a structure that incorporates shape memory alloy components, use as a material selection guide for alloys, and as a materials processing guide to produce favorable textures to enhance SMA response.